CAREER: The role of microscopic predators in marine cyanobacterial ecology and evolution

This Faculty Early Career Development Program (CAREER) project addresses longstanding gaps in understanding of marine microbial predator-prey interactions, with relevance for marine microbial ecology, ocean biogeochemistry and productivity, and ocean food webs. The investigator is conducting a series of laboratory studies using a model predator-prey pair while training undergraduate and graduate students in foundational microbiological techniques and inquiry. Training outcomes include improvement of workforce readiness in biological industry and technology. The investigator is also developing a non-fiction book to engage the public about the process of science and discovery, the role of ocean microorganisms and their benefits to humans, and the wider value of the ocean.

This study employs a model predator-prey system developed by the investigator: a bacteriovore (the choanoflagellate Salpingoeca rosetta) and a bacterium (the picocyanobacterium Prochlorococcus) combined as predator and prey. Three research objectives are addressed in the laboratory and in two undergraduate microbiology classrooms, including: 1) map vulnerability to choanoflagellate predation onto Prochlorococcus phylogeny, 2) test how Prochlorococcus morphology and nutrient status affect choanoflagellate predation, and 3) identify genes involved in response to choanoflagellate predation. Results will enable future research using a stable co-culture of a dominant marine protist and picocyanobacterial prey, allow for inquiry into predation resistance mechanisms through experimental evolution, and enable testing of specific predator-prey relationships over oceanic gradients to link bottom-up and top-down controls on marine bacteria.